U.S.-China Cooperative Research (Chemistry) in Quantum Dynamics Studies of Polyatomic Molecules

9312847 Zhang This award supports cooperative work with Chinese scientists at Shandong Teacher's University, Jinan, China on quantum dynamics of polyatomic molecules. The U.S. principal investigator, John Zhang of New York University, will work with NYU graduate students on a two year collaboration with the Atomic and Molecular Physics Group at Shandong Teacher's College. Understanding the fundamental mechanisms that control intra-and intermolecular energy transfer and energy partitioning among the products of unimolecular reactions is of practical importance in chemical dynamics. As studies of unimolecular reaction move ever closer toward state to state level thanks to advances in laser and molecular beam technologies, it is increasingly important and necessary to use dynamical theories to simulate unimolecular processes in order to understand the detailed dynamics and features of the potential energy surfaces that characterize unimolecular reactions. In this proposal, the researchers will focus on rigorous quantum mechanical study for vibrational predissociation of HF dimer and other hydrogen bonded complexes and the direct photodissociation of hydrogen peroxide.